Connections to NSFNET

9417263 Schram Anne Arundel Community College requests support from NSF for connection to SURAnet for their campus. SURAnet is the midlevel network located in the southeastern United States. It will provide operations management and information services and it will give Anne Arundel Community College a 56 bits per second connection to the NSFNET, a high speed (1.5 - 45 million bits per second) National Backbone network. The college has experienced a growth in auxiliary programs that has added value to the basic mission that the college serves to aid the education of all persons of all ages. The networking plan at Anne Arundel Community College is the foundation for uniting all the disciplines and campus groups.